Heights, Capacity, and Dynamics

DMS-0300784
Rumely, Robert S.

Abstract

Title: Heights, Capacity, and Dynamics

In this project, the Principal Investigators study various aspects of
analysis on p-adic spaces, especially those arising in connection with
canonical heights, capacity theory, and algebraic dynamical systems.
The project involves the development of both theory and applications,
and comprises three main topics: adelic equidistribution theorems for points
of small height; arithmetic aspects of the dynamics of iterated rational
functions; and analysis on Berkovich spaces with applications to dynamical
systems, arithmetic intersection theory, and higher-dimensional capacity
theory.

The motivation for this work is to understand and generalize certain
recently discovered properties of "height functions". Height functions
first arose in connection with elliptic curves, and are ubiquitous in
modern number theory. One of the goals of the project is to establish
properties of heights for arbitrary curves and arbitrary dynamical systems
which are similar to those for elliptic curves. This will be approached by
using methods from potential theory. Another goal is to establish
"p-adic" analogues of results which are known to hold in the theory of
manifolds. When completed, the project will reveal new connections
between number theory, dynamical systems, and potential theory. Funding
for this project will support the infrastructure of the University of
Georgia's number theory group, which has historically been very strong.
The project will impact both the graduate and undergraduate programs at
UGA: some of the questions raised by this research will lead to PhD
dissertation topics for graduate students, and others will provide an
opportunity to involve undergraduate students in cutting edge mathematical
research.